Implementation of an Integrated Inorganic/Physical ChemistryLaboratory

Western Washington University is equiping a laboratory for an integrated inorganic/physical chemistry course. Experiments in the course emphasize the inter-relation between inorganic